A Special Conference to Consider Initiating a Network for Creating CD-ROMs for Science Education; April 1992; ColoradoSprings, Colorado

An invitational, three day conference will be held at the Cheyenne Mountain Conference Center in Colorado Springs on April 1-3, 1992 to examine the present status of CD-ROMS. Issues to be addressed include rights, permissions and royalties; conversion from print to magnetic format; software/user interface; and interactions with the CD-ROM industry. The conference will publish a conference report which can serve as an introduction to CD-ROM and its potential for use in education. The conference will also attempt to develop common features in CD-ROMS for education to make the medium easier for teachers to use. A group of educators will be organized to interact with representatives of CD-ROM industries to encourage effective use of CD-ROMS in education. The participants will include representatives from major EHR funded CD-ROM projects, representatives from industries and researchers in the field of CD-ROM development, and representatives from the NSF and the Department of Education.